Study of Solar-Variability-QBO-Weather Relations in the Context of Variations in Cosmic Rays Fluxes and Storm Intensification

An accumulating body of data has provided strong evidence that cyclonic disturbances together with the jet stream at tropopause altitudes vary in response to the 11 year solar cycle and to the quasibiennial oscillation of equatorial stratospheric winds (the QBO). Short term responses to magnetic storms, solar wind sector boundaries, and solar flares have been found, and these can be examined as diagnostics on the effectiveness of carriers of solar variability to the troposphere and lower stratosphere. A new short term response has been found in the form of changes in tropopause pressure and vertical temperature profile in the troposphere in the two days following solar-flare- related high-speed plasma streams (HSPS). This effect is made understandable in the context of galactic cosmic rays being the main carrier of the solar variability. This grant will support a data analysis effort relevant to Solar Variability/QBO/Weather effects in the context of the galactic cosmic rays being the main carrier of the solar variability. Tests will be made of the adequacy of the time variations of the cosmic ray flux, particularly for the energy range 0.3 to 3 GeV, to account for the observed short term and long term solar variability influences on the troposphere and lower stratosphere. An analysis will be made of variations in stratospheric minor constituent variations in the context of chemical/aerosol carriers for the tropospheric QBO variation. The work should provide constraints on several possible mechanisms of troposphere/stratosphere response, particularly those involving electrical and chemical effects on cloud microphysics, and on possible links to latent heat release and storm intensification.